CAREER: Adaptive Admission Control for Broadband Communication

This research will formulate and develop a method for controlling the traffic carried on a broadband communication network, specifically for the case of carrying diverse real traffic sources with difficult to model and analyze queueing properties; inter-source correlation; slowly varying statistical properties; diverse heterogeneous source types; mis-specified traffic descriptors; and inadvertent network traffic shaping. The focus is the case when the traffic sources are given quality of service guarantees and the goal is to maximize utilization of network resources. The method is based on statistical classification techniques that use historical data as to what were acceptable combinations of carried traffic and what were not. Problems addressed include efficient representation and storage of historical data; choice and modification strategy of classifier model; noise on the data; confidence intervals on decisions; directed and undirected exploration of the decision space; filtering out uninformative data; and implementations. The effectiveness and advantages of the methods developed will be experimentally tested against alternative methods on simple models and real traffic traces such as ethernet data; variable rate video; and ISDN traffic.